Student Travel Support for International Symposium on High-Performance Computer Architecture (HPCA) 2010

The International Symposium on High-Performance Computer Architecture (HPCA) will be held in Bangalore, India, on January 9-14, 2010. HPCA is sponsored by IEEE Computer Society. HPCA is one of the top 3 computer architecture flagship conferences, and provides a high-quality forum for scientists and engineers to present their latest research findings in the rapidly-changing field of computer architecture.
The conference offers graduate students pursuing doctoral studies in computer architecture the opportunity to participate in a week-long intensive program focusing on the core as well as new and emerging areas in computer architecture.
This award is to make travel scholarships available to students and universities not typically represented at HPCA in order to improve the conference’s impact and outreach.